Integrating Usability and Accessibility in Information Assurance Education

Information Science and Systems (33)

This project builds and supports a national community of faculty members to integrate usability and accessibility in Information Assurance (IA) education. It involves the following key activities: (1) Development of a set of learning and teaching materials that allow instructors to effectively integrate usability and accessibility concepts and strategies in IA courses; (2) Development of an online web portal through which faculty and community members can access the educational materials, communicate with each other, and share knowledge and experiences; (3) Dissemination of the educational materials and the online portal through conferences and seminars; (4) Development of a faculty team at the partner institution who can teach usability, accessibility, and IA courses and conduct research in the related fields; and (5) Development of a research mentorship program, including community college and junior faculty.

The project structure ensures that faculty with different level of skills and background work in an integrated team and benefit mutually from the collaboration. The unique distribution method of the online web portal enables a large body of faculty nationwide to access the lecture materials and improve their IA courses.